COLLABORATIVE RESEARCH: Evaluating Tectonic Boundaries: Continuous Transect of a Proterozoic Orogen in the Grand Canyon

The Proterozoic rocks in the western United States appears to consist of a collage of terranes that accreted to a cratonic nucleus during successive collisions. The boundaries between these packages are marked by intense deformation and separate rocks of different histories, but due to later overprints, are commonly difficult to detect and interpret. This project will focus on Proterozoic boundaries well exposed in the Grand Canyon that preserve excellent records of the path of deformation and metamorphism. It will investigate plutons and pegmatite networks to define timing relationships and will explore isotopic variations that can lead to understanding of the origins the various crustal blocks. Results are expected to provide documentation of several proterozoic tectonic boundaries and to develop a set of criteria for boundary recognition in less-well exposed areas.